CAREER: Improving Software Assurance Using Transactions

he goal of this CAREER project is to develop novel mechanisms that use
transactions to improve software assurance. This project is developing
Transactional Memory Introspection---or TMI, which is an approach to
building software security mechanisms by leveraging recent advances in
hardware and software transactional memory. Security mechanisms based
on TMI build upon the same machinery that transactional memory systems
use to ensure performance and functionality. TMI therefore promises to
make security mechanisms efficient and easy to integrate with software.

TMI-based security mechanisms being researched in this project include:
(1) TxAuth: a reference monitor architecture to better ensure complete
mediation of security-sensitive operations and allow easier integration
with legacy systems;
(2) TxInt: a data structure integrity monitor to protect extensible
software systems, such as operating systems and browsers, from untrusted
extensions; and
(3) TMWatch: a data watchpoint framework that equips malware analysis
tools and debuggers with new capabilities to reverse-engineer malware
behavior.

More broadly, this project seeks to demonstrate that concurrency control
machinery implemented in transactional memory systems can also be used to
improve software assurance. These additional benefits may lead to more
research on transactions and their ultimate adoption by hardware and
software vendors. The results from this project are being disseminated
via the development of new course material that will expose students and
software vendors to the dos and don'ts of secure programming. Suitable
course material developed in this project is also being included in
courses targeted towards K-12 and undergraduate students to attract
them to computer science programs.